REU: Opportunities for Undergraduate Research in Biology

The Pomona College Department of Biology has a long-standing commitment to teaching students how to investigate and solve scientific problems and a strong tradition of involving undergraduates in biological research in meaningful ways. In the REU Sites program at Pomona College students will work jointly with Ph.D.-holding faculty advisors on projects in a variety of fields, including molecular biology, population and behavioral biology, physiology and cell biology. Students will also participate in a number of support activities that will provide them with the opportunity to discuss their projects with other student researchers and with younger students who are considering doing research. The student-faculty research community will hold regular informal research meetings and open houses. All students will present the results of their work at a science poster conference. This award will foster the continued education and training of individuals who will be part of the next generation of basic researchers in the biological sciences.